Acquisition of a Minisupercomputer for Simulation Chemistry

The recent successes of theoretical chemistry with improved programs and faster computers have generated the need for still faster machines. Experienced users wish to solve larger and larger problems of more and more relevance to the experimental chemist. Similarly, experimental chemists, seeing these results, are compelled to become new users. The acquisition of state-of-the-art computing equipment is essential to the modern chemistry department carrying out frontier research. The Department of Chemistry at Columbia University will use this award from the Chemistry Shared Instrumentation Program to help upgrade an extant Convex minisupercomputer. Among the areas of chemical research that will be enhanced by the upgrade are as follows: 1) Quantum solvation and dynamics 2) Theory of reactions in solution 3) Molecular dynamics in constrained geometries 4) Real-time many-body quantum dynamics via phase-space representations of density operators 5) Frequency locking and dragging 6) Spectroscopy and dynamics of isolated molecules or ions in crystals, glasses, liquids, or on surfaces 7) Molecular recognition 8) Polyether antibiotic synthesis 9) Graphically based molecular modeling.